Reprogrammable Parallel Nanomanufacturing

This project assesses magnetic recording as a technology for parallel assembly of
nanostructures into larger devices with < 10 nm resolution, determines the fundamental
limitations of this approach for nanomanufacturing, and investigates its societal and
historical context as a nanotechnology. In this approach, a nanopositioning system scans
a magnetic recording head, which records bits onto media underlying a microfluidic cell
containing magnetic nanostructures. An array of these media/cell structures allows cell
recording in parallel, and with different patterns. Bottom-up assembly will be
demonstrated by using the stray fields emitted by these recorded patterns to temporarily
immobilize the nanostructures, followed by permanent fixing through curing the cell
fluid. The spatial repeatability of resulting nanostructure assemblies will be related to
variances in instrument stability, nanoscale positioning, assembly process, and the
fundamental limits of the recording process. As a societal corollary to the technical
components, the nano-community's awareness of the spatial tolerances currently
achieved in magnetic recording will be investigated. In conjunction, a historical study of
the magnetic recording community will produce a model of the interactions and isolations
of nanotechnology sub-communities (silos), to identify where current and future
nanotechnologies fail to connect, and the impacts on nanomanufacturing innovation.
If magnetic recording enables nanometer precision in aligning nanostructures over
micrometer dimensions, potential applications range from building active nano-optical
structures, assembling next-generation solar cells for alternative energy production,
forming biological and chemical sensor technologies, to building implantable medical
devices for disease diagnosis and treatment. Because of its scale, this technology could be
incorporated into a device the size of a disk drive, allowing on-site customization by the
end user. By leveraging the electronics for error rate control, mechanical positioning, and
other attributes already available in commercial disk drives, this technology could emerge
with proven reliability, increasing its chance of acceptance by consumers. Understanding
how the demand for information storage, enabled by technology scalability, rapidly
moved magnetic recording to the nanoscale, will help increase communication among
engineers and scientists, as well as industry and academia. This project will extend
USC's South Carolina Citizen's School of Nanotechnology by adding a classroom
component about technology manufacturing for the general public, as well as for students
across different disciplines.